14C Measurement in the U.S. Indian Ocean WOCE Program

9413169 Key This project is a contribution to the US World Ocean Circulation Experiment (WOCE) Indian Ocean Hydrographic Program (IO WHP). The PI will collect water samples to be analyzed for Carbon-14 (radiocarbon) concentration on the first two legs of the expedition, denoted as WOCE lines I8S and I9S, respectively, as well as on most of the other lines over the 1995 period. Lines I8S and I9S are essentially meridional lines along 115 degrees east, and 85 to 95 degrees east between about 30 degrees South and the Antarctic continent. Specific objectives include a comparison of these measurements of bomb-injected C-14 with similar measurements made in 1978 in order to quantify mixing rates into the thermocline over a 17-year time scale. Measurements will also contribute to a study of the deep water circulation in the western South Australia Basin, and the formation of Subantarctic Mode Water Antarctic Intermediate Water along the Antarctic Circumpolar Current. ***